Conference on Expert Systems For Numerical Computing April 24-26, 1990, Purdue University

This grant is to support a conference to be held at Purdue University during April 24-26, l990. The conference will bring together numerical computing and artificial intelligence experts, and will have both invited and contributed presentations. The purpose of the conference is to help expedite the development of expert aids for scientific computation.